Enhancing Career Pathways to Green Jobs in High-performance Building Technology

Buildings account for a major portion of the total U.S. energy consumption. Making buildings more energy efficient is a goal of the high-performance building technology industry. Achieving this goal requires hiring more building performance technicians, but the demand for these technicians outstrips the supply. Building performance technical work includes all aspects of facility operations and maintenance, including whole-system analysis and energy management. Thus, success in the building technology workforce requires the knowledge and skills needed to install, implement, and maintain complex building systems. This project intends to increase the pipeline of highly skilled building performance technicians by creating a new stackable certificate program, offering dual enrollment courses for high school students, providing training for high school teachers, and conducting outreach activities. By expanding career pathways into the building performance workforce, the project aims to broaden participation of women and other groups that are underrepresented in the building technology workforce and that have been disproportionately impacted by the COVID-19 pandemic.

This project will address a significant and growing demand for entry-level high performance building technicians in Southwest Ohio. The overall goal of the project is to expand the pipeline of skilled technicians who have the skills to reduce energy consumption in buildings. To this end, the project will develop a stackable short-term certificate with embedded industry-recognized credentials. Students who earn this credential will be prepared to take industry certification exams and enter the building performance workforce. Specific aims of the project include to: (1) create a new postsecondary certificate program that can be completed by high school students; (2) train high school teachers to deliver postsecondary course content; (3) pilot an outreach program to raise awareness of technical career opportunities among youth, particularly from communities not equitably represented in the building technician workforce; (4) provide a structured approach to guide high school students and unemployed/ underemployed adults onto building performance career pathways; and (5) improve student learning by upgrading labs with the latest building technologies. Using student surveys, student interviews, and institutional data, the project will assess the impact of the certificate program on student learning and the impact of outreach activities on recruiting students from communities that are underrepresented in the technical workforce. This project is funded by the Advanced Technological Education program that focuses on the education of technicians for the advanced-technology fields that drive the nation's economy.